FAW: Mathematical Sciences: New Directions in Variational Inequalities for Equilibrium Modelling and Computations

This Faculty Award for Women Scientists and Engineers is made to Dr. Anna Nagurney of the General Business and Finance. Dr. Nagurney will continue her work in the field of Operations Research. In particular she will work on variational inequalities. The NSF Faculty Award for Women recognizes the high quality of the awardee's record in teaching and scholarship as well as potential for continued significant contributions to scientific research, the academic profession, and the education of future scientists. Dr. Nagurney will continue her work in the field of Operations Research. Particularly noteworthy is her effort in bringing women students into the field of Operations Research.